Systematic Relationships and Evolutionary Patterns in Galvezia (Scrophulariaceae)

Dr. Wayne J. Elisens of the University of Oklahoma will conduct a multidisciplinary study designed to assess taxonomic relationships and evolutionary mechanisms in a group of long- lived desert perennials. Shrub snapdragons (the genus Galvezia) occur in desert habitats in continental North America, the California Islands, coastal South America, and the Galapagos Islands. Because of their biological characteristics and geographic distributional pattern, shrub snapdragons represent an ideal group for investigation of the processes and patterns of evolutionary change in plants that occur in a) islands and continents, b) an oceanic archipelago and a group of offshore islands, and c) desert biomes on two continents. Research methodologies include field study of and collections from natural populations, investigations of reproductive system and crossing among species propagated in greenhouses, laboratory studies of chromosomal and genetic divergence, and numerical estimates of genetic and phylogenetic relatedness. The major goals of the study are to elucidate evolutionary mechanisms among New World desert shrubs, quantify genetic differentiation among the species, reconstruct the evolutionary history of the shrub snapdragons, and propose a formal classification. This study is particularly significant because evolutionary mechanisms among desert woody plants are poorly understood and because floras of islands provide some of the best examples of natural experiments for examination of evolutionary divergence and processes associated with long- distance dispersal, establishment, and adaptation. The results of this study are important for the conservation, management, and utilization of desert woody plants in North and South America and the Galapagos Islands.